Engineering Research Equipment Grant: Liquid Scintillation Counter

This research effort is aimed at understanding the basic metabolism of microbial and mammalian cells and to use that information to alter the productivity of the reaction system. A liquid scintillation counter will be used for the following projects: (1) effects of biopolymer particulates on the metabolism and ecology of bacterial biofilms; (2) enhanced enzyme productivity in Hansenula polymorpha by substrate composition and growth rate transients; (3) influence of adhesion on the metabolism of microbes genetically-engineered for xenobiotic compound degradation in the ground water; (4) thermochemical control of secondary metabolite quality, yield, and production rate-synthesis of the polysaccharide Xanthan by Xanthamonas campestris; and (5) engineering studies of kinetics and optimization of monoclonal antibody production by a hybridoma.